Preparing to Teach Science Concepts in Middle School Using Inexpensive Laboratory Equipment

Interdisciplinary (99) This project is adapting from widely used texts and laboratory manuals existing inquiry-based, field-tested laboratory exercises developed for introductory or general education courses in physics, biology, and chemistry. Exercises are being modified so that they can be performed using laboratory equipment specifically designed for middle school use. All lab exercises are utilizing the same basic core equipment, so that students can concentrate on the inquiry and not on learning how to use multiple pieces of highly specialized equipment. The modified lab exercises will be made available for other users, though publication and web-based dissemination.